Continuation of Water Vapor and Lightning Effects on D-Region Radio Wave Propagation

The subject of this research project, to be carried out at this predominantly undergraduate institution, involves measurement of D-Region absorption effects on high frequency radio signals. The mesospheric water vapor concentration and lightning induced changes in the ionosphere. This is the major research effort within the physics department of this undergraduate institution and significantly contributes to the stimulation of both the faculty and undergraduate students.